Effects of Trigeminal Damage Upon Somatosensory Thalamus

Recovery of function after nervous system damage is an issue of considerable medical and social importance. That the central somatosensory system undergoes reorganization following damage has been well established. However, the extent and nature of such "recovery" has been and continues to be the subject of some controversy. Further, there has been considerable argument regarding the potential anatomical substrates underlying the functional reorganization that has been observed after somatosensory system lesions. This research project will address these issues by examining functional and anatomical reorganization within a relatively simple central somatosensory structure, the ventral posteriomedial nucleus (VPM) of the thalamus. Recently the P.I.'s found that this nucleus undergoes functional reorganization after damage to its chief input. Normally, neurons in VPM receive their main input from the principal trigeminal nucleus (PrV) of the brainstem and are responsive to stimulation of 1 or 2 large facial whiskers. However, ablation of the adult PrV markedly alters the responses of VPM cells. They become sensitive to 6 or more whiskers and dependent upon input from subnucleus interpolaris (SpVi) of the spinal trigeminal nucleus. The major objective of the proposed research is to define the structural substrate underlying this functional reorganization. The operating hypothesis is that normally one input to a somatosensory structure plays the most significant role in determining its organizational features (i.e., somatotopic representation and receptive field properties of individual cells), but that removal of this input may permit expression of very different neuronal responses and topography which are attributable to ancillary or redundant afferents to that nucleus. The P.I.'s also hypothesize that reorganization in the target structure will differ depending on whether the major input is removed during the course of development or after its completion. This research is likely to yield new insights into the plastic capabilities of the central nervous system in response to damage both in the adult and developing animal.